SemiConductor Metrology at Northern New Mexico Community College

This project provides undergraduate students with hands-on experiences in inspection techniques in this institution's semiconductor manufacturing training program. The Microelectronics Technology certificate and degree programs are designed to prepare students for entry-level positions in the semiconductor manufacturing and production industry. The testing and validation equipment supported by this grant include: optical inspection stations (used visually demonstrate the impacts of particle contamination and to inspect mask openings, wafers, completed circuits, etc.), scanning electron micorscopes (used to observe film quality and othe photolithography properties), profilometers (used to measure oxide layer properties), film thickness gauges, and other equipment to provide students with state-of-the-art experiences relating to semiconductor manufacturing.